Coherent Structures, Vortices and Waves in Jets and Instabilities

The proposed research is to perform numerical and theoretical studies of nonlinear coherent structures and waves in the ocean and atmosphere, and the instabilities that make them. Previous numerical computations of Kelvin and Rossby solitons will be extended to include background mean currents, which introduce the severe physical and mathematical difficulties of resonances, perturbative small divisors, hyperasymptotic corrections and critical latitudes. One of the aims of the project will be to determine better the nature of nonlinear vortices in the ocean and atmosphere, such as Tropical Instability Vortices (TIV), with are Rossby waves embedded in mean sheared jets. Thus, incorporating mean flows into the solutions will be a major thrust of the work. Solitons and other nonlinear traveling waves are solutions to nonlinear differential equation eigenvalue problems. Both spectral Galerkin and radial basis function (RBF) spectral methods will be used to discretize them. Because RBFs are a meshless method without a canonical grid, it will be possible to cluster grid points densely in the frontal zones and critical layers even when these high gradient features are curving, filamentary, or otherwise have a complicated topology. The spectral discretizations generate a large system of nonlinear algebraic equations. Standard parameter-or-pseudoarclength continuation methods have a high failure rate, often missing interesting modes. One numerical task is to develop physics-based alternatives that build the resonances into the solver. The goal is a polyalgorithm with backtracking and physics-based options that will triumph when standard numerical black boxes are ineffective or very slow. These tools will be applied to compute large amplitude baroclinic waves in the atmosphere. Even though these are weakly unstable, it should be possible to understand observations of localized coherent structures. A natural outgrowth of recent work on TIVs is to reconcile the five paradigms of linear instability theory and the applicability of each to TIV genesis.

The analytical and numerical methods that will be developed in the project will have applicability in a number of fields beyond oceanography and meteorology, including quantum mechanics, plasma physics, and optics. The project will support the training of a graduate student and will broaden participation by under-represented undergraduate students.